Mathematical Modeling of Neural Populations

When we reach toward a visual object, there is a precise and continuous flow
of information from the visual areas to the motor circuits that control arm and
hand movements. But a moment later, we may be engaged in scratching an ear, with
the same motor circuits now guided by tactile sensation and uncoupled from
vision. This research project asks fundamental questions about how neural
circuits perform such complex switching functions to re-route the flow of
information during controlled and adaptive behaviors. A critical role in
functional switching may be played by gain modulation, in which a type of
"volume-control" mechanism at synapses adjusts neural responses. An important
novel component is a testable hypothesis of a specific biophysical mechanism for
gain modulation. Mathematical models of neurons and neural populations will be
constructed based on detailed anatomical and physiological data, and the results
arising from these models will be compared with experiments involving visual,
discrimination, and motor tasks. Results of the proposed research will shed
light on some of the complex features of neural circuitry that allow animals and
people to control their actions and modify and tune their behaviors to specific
conditions.
The scientific goal is to relate these behavioral aspects of neural circuitry
to the underlying cellular and biophysical mechanisms that generate them, using
mathematical modeling to bridge the gaps between our knowledge at the cellular
and behavioral levels. In addition, the proposed research will play a critical
role integrating mathematics and biology into the education and training of
undergraduate and graduate students, through classroom work, honors and rotation
projects, and thesis research. This project is jointly supported between
Computational Neuroscience (BIO) and Applied Mathematics (MPS).